Cohomological and Homotopical Methods in Mathematical Physics

9803435
Stasheff
This research is concerned with application of techniques Stasheff
developed earlier in his study of classifying spaces and rational homotopy
theory and involves his combining of those techniques with developments
introduced ad hoc by physicists. The current project is concerned
particularly with three inter-related classes of problems and aims at
elucidating their intrinsic structure as well as computation of significant
applications:
(I) homotopy associative differential graded algebras and Lie and
commutative analogs, particularly as they occur in various physical
field theories,
(II) the homological aspects of Lagrangian and more general exterior
differential systems, both classical and quantum, as embodied in the
anti-field formalism of Batalin-Vilkovisky and its generalizations,
(III) deformation theory as giving rise to higher homotopy algebra and
as applied to physical systems. Specific applications are projected
to the problems of higher spin particles and of mixed open-closed
string field theory.
Cohomological physics refers to that part of mathematical physics,
primarily gauge and other field theories, in which a variety of cohomological
techniques are seeing increasing application. Recently, further development
of these techniques within the physical context has begun to have an effect
on more purely mathematical research, for example, providing new applications
of the existing theory of ``higher dimensional algebra'' for which
1-dimensional diagrams are inadequate. Although defined in greater and more
abstract generality, such structures, as they occur in or are inspired by
mathematical physics, are the focus of this research. The results should
aid in deeper understanding of the mathematical structures essential to the
physics (especially of higher spin particles and of mixed open-closed string
field theory) and of the inter-relation of physical and mathematical
concepts. The results should also be of independent mathematical importance.
***